MORNET - Missouri Research Network - Access to MIDNET and NSFNET

The University of Missouri proposes to create the Missouri Research Network (MORNET) in order to provide direct connection to the NSFNET regional network MIDNET for access to the NSF National Supercomputing Center. MORNET will operate as a subnet of MIDNET, connecting the University of Missouri-Columbus, University of Missouri - Kansas City, University of Missouri - Rolla, and the University of Missouri - St. Louis.***//